Ligands for the Mannose 6-Phosphate/Insulin-Like Growth Factor II Receptor

The overall objective is to understand the biological function of the mannose-6-phosphate / insulin-like growth factor II receptor (M6P/IGF-IIR) in targeting lysosomal enzymes to lysosomes. This protein binds at least two distinct classes of ligands: phosphorylated lysosomal enzymes and IGF-II. The biophysical properties and primary structure of the receptor strongly suggest that other ligands not yet identified exist. Preliminary studies indicate that new classes of ligands and variant forms of IGF-II bind to the receptor. This proposal has three specific aims: 1, protein ligands which bind to the receptor will be purified; 2, new ligands will be identified, and their primary structures determined by chemical methods and, if necessary, molecular cloning; and 3, the new ligands will be characterized in terms of the parameters of the receptor-ligand interaction and their biological effects on cultured cells. One of the most fascinating and provocative findings in cell biology in recent years was the discovery that the membrane bound receptor for phosphorylated lysosomal enzymes, which is responsible for targeting of lysosomal enzymes to the lysosomes and has binding specificity for the phosphorylated mannose residues on these enzymes, and the cell surface IGF-II receptor, which is responsible for detecting and binding a hormone-like growth factor termed insulin-like growth factor II, were in fact the identical molecule. Subsequent work has shown that the two ligands bind to different regions of the receptor. Results from other laboratories suggest that the receptor is vital for fetal development in mice, whereas the two known ligands are not. The hypothesis underlying this research project is that there are other biologically important ligands for this receptor, which bind at a region or regions distinct from those involved in the binding of either IGF-II or lysosomal enzymes. This research will provide fundamental insights into the function of this important membrane protein.